Telerehabilitation balance training for community dwelling older adults

PI: Sienko
Proposal: 1159635
There are substantial physical, emotional, and monetary costs associated with balance impairments and the falls that typically ensue from acute or chronic bouts of instability. Given the large percentage of older individuals that experience balance problems, and the desire of these individuals as a whole to live independent lives, decreasing fall risks is of paramount importance. Balance training reinforces the development of sensorimotor strategies to improve postural control and functional mobility which is crucial for fall prevention in the older adult population. Sensory augmentation is a technique of augmenting or replacing compromised sensory information through, for example, vibrotactile cues of body position. The PI and other investigators have demonstrated that sensory augmentation decreases trunk sway during real-time operation in a laboratory setting, and preliminary results suggest that persistent improvements in balance performance exist over time periods of minutes to hours following a small number of training sessions. While the results of a single case study have shown improvements that lasted up to eight weeks, no systematic studies have been performed to determine the influence of sensory augmentation training on long-term retention following a large number of balance training sessions. The three primary goals of the proposed work are as follows: 1) Develop and characterize the efficacy of a telerehabilitation cell phone based balance training tool intended for use in the homes of community dwelling older adults; 2) Test for the persistence of balance improvements for older adults who receive vibrotactile sensory augmentation during standard at-home balance training exercises (intervention group) compared with the persistence of improvements for those who perform these exercises without sensory augmentation (three control groups); and 3) Assess the effect of telemedicine-assisted balance training on exercise program compliance.
Intellectual Merit
Despite the success of sensory augmentation technologies over the past ten years in improving standing balance for persons with balance deficits in laboratory settings, significant scientific questions remain unanswered; specifically, whether or not the carry-over effects of training with a sensory augmentation technology exceed the carry-over effects of training alone. Furthermore, existing sensory augmentation technologies were developed for continual use over a short number of supervised sessions rather than periodic rehabilitative use over many unsupervised session; specifically, user-centric, easy-to-use, homebased technologies have yet to be developed, thereby impeding potential widespread adoption. This work will develop a sensory augmentation device that is appropriate for repeated at-home use by older adults, based on a cell phone platform. Appropriateness, defined by ease of use, clear and accurate exercise instruction, proper stability thresholds (i.e., when to give corrective feedback), and correct assessment of progress (i.e., when to move on to the next exercise), will be supported by co-creative design of the device by engineers, prospective older adult end users, and those administering rehabilitation (physical therapists) throughout the design process. Furthermore, we will utilize the device's intrinsic functionality for telemedicine to communicate detailed information regarding at-home exercise compliance to the study team for evaluation of the cell phone platform as a means to increase compliance during at-home rehabilitative programs.
Broader Impacts
If balance improvements following an extended series of sensory augmentation sessions are demonstrated to be retained for time periods of weeks to months, significant impact on quality of life for balance-impaired individuals may be achieved through decreased fall risk, increased confidence in performing daily tasks, and ability to remain in an independent living facility for a longer period of time. Furthermore, periodic maintenance of these balance improvements may be enabled in a straightforward, home-based, and low-cost manner through the development of the cell phone balance trainer proposed here. For family members and other caregivers, this technology is expected to reduce the amount of required balance-related assistance. From a clinical standpoint, the telerehabilitation functionality of this technology will provide physical therapists with a mechanism to monitor compliance with prescribed at home balance therapy programs and track patient progress over a large series of sessions. By facilitating and recording balance metrics for a large number of rehabilitative training sessions that can take place over a long period of time, the device will provide a means to gather data that currently is unknown regarding the relationship between number of training sessions with sensory augmentation and persistence of positive outcomes. This understanding is critical to achieve satisfactory rehabilitation.